Acquisition of Improved Laser System for New Experiments in Atomic Physics

9413457 Leventhal The equipment supplied by this grant consists of laser systems that will significantly increase the wavelength range and the quality of the laser radiation available in the Atomic Physics Laboratory at UMSL. This upgrade will permit maximum utilization of the facilities and fuller exploitation of experimental techniques recently developed in this laboratory. The experiments, all of which rely on sequential excitation of atoms using multiple laser beams, are aimed at elucidating fundamental properties of atoms. Recent work has exploited new experimental techniques developed in this laboratory for measuring atomic parameters with unprecedented accuracy. Two of these techniques, precision dc Stark spectroscopy and Floquet spectroscopy, are based on the dc and ac Stark effects respectively. Both employ highly excited atoms to magnify atomic responses to the fields. A third technique, developed for the study of photoionization of excited atoms, employs a variety of laser beam polarization schemes to acquire data which, in conjunction with angular momentum algebra, make it possible to determine the cross sections for photoionization to specific final angular momentum states. The increased range of available laser wavelengths will greatly expand experimental capabilities. The new state-of-theart device would make it possible to study a wider variety of atomic processes in considerably greater detail than currently possible. The narrower bandwidth would permit finer resolution of spectral features while the higher available intensity would allow excitation of atomic transitions that cannot currently be accessed. As with all laboratory resources, the requested system would provide experience and training for the many undergraduate students who participate in this research. It would also benefit the secondary school teachers who gain valuable laboratory experience during summer training sessions. Thus, this equipment, in addition to its intrins ic value as a laboratory tool, would serve an educational function, training students and teachers in the operation of state-of- the-art instrumentation. ***